COLLABORATIVE RESEARCH: Evolution and Biogeography of Late Cretaceous Vertebrates from the James Ross Basin, Antarctic Peninsula

0003844
Case

This award, provided by the Antarctic Geology and Geophysics Program of the Office of Polar Programs, supports a collaborative research project between the Saint Mary's College of California, the South Dakota School of Mines and technology, and the Argentine Antarctic Institute (Instituto Antartico Argentino or IAA) to investigate the Late Mesozoic vertebrate paleontology of the James Ross Basin in the Antarctic Peninsula region. The Campanian through the Maastrichtian ages (80 to 65 million years ago) is an important time interval concerning vertebrate biogeography (i.e. dispersals and separations due to moving landmasses) and evolution between Antarctica and other Southern Hemisphere continents (including India, i.e. Gondwana). Moreover, the dispersal of terrestrial vertebrates (i.e. dinosaurs and marsupial mammals) from North America to Antarctica and beyond (e.g. Australia) via Patagonia and the Antarctic Peninsula, as well as the dispersal of modern birds from Antarctica northward are important unresolved questions in paleontology. These dispersal events include vertebrates not only in the terrestrial realms, but also in marine settings. Both widely distributed and localized marine reptile species have been identified in Antarctica, creating questions concerning their dispersal in conjunction with the terrestrial animals.

The Antarctic Peninsula and Patagonia represent the western-most portion of the Weddellian Paleobiogeographic Province, a region that extends from Patagonia through the Antarctic Peninsula and western Antarctica to Australia and New Zealand. Within this province lie the dispersal routes for interchanges of vertebrates between South America and: 1) Madagascar and India, and 2) Australia. As the result of previous work by the principal investigators, it is postulated that an isthmus between more northern South America and the Antarctic craton has served to bring typical North American dinosaurs, such as hadrosaurs (duck-billed dinosaurs) and presumably marsupials traveling overland, while marine reptiles swam along coastal waters, to Antarctica in the latest Cretaceous. Finally, this region has served as the cradle for the evolution, if not the origin, for groups of modern birds, and evolution of a suite of typical southern hemisphere plants.

In order to confirm and expand upon these hypotheses, investigations into the latest Cretaceous deposits of the James Ross Basin, Antarctica Peninsula must be continued. The Cape Lamb and Sandwich Bluff geological units, of the Lopez de Bertodano Formation in the James Ross Basin along the eastern Antarctic Peninsula, exhibit a mixture of marine and terrestrial deposits. The following vertebrates have been recovered from these sedimentary deposits during previous field seasons: plesiosaur and mosasaur marine reptiles; plant eating dinosaurs; a meat eating dinosaur; and a variety of modern bird groups, including shorebirds, wading birds and lagoonal birds.

This project will undertake new fieldwork to recover new specimens in order to test biogeographic and evolutionary hypotheses concerning Late Cretaceous vertebrates in Gondwana. Fieldwork is planned in January 2002 and 2003 to explore the eastern slopes of Cape Lamb, Sandwich Bluff and False Island Point on Vega Island, and the Santa Marta Cove area of James Ross Island.

This research will result in important new insights about the evolution and geographic dispersal of several vertebrate species. The results are important to understanding the development and evolution of life on Earth.

This is a collaborative research project with Argentinean scientists from the IAA and it continues a productive collaboration that began in 1995. In addition, collaboration with vertebrate paleontologists from the Museo de La Plata, both in the field and at our respective institutions in Argentina and in the United States, will continue.